Lifetime Trajectories

In stable, long lasting social groups the progress of each individual through life may be viewed as a trajectory, in which future position is influenced by past history. In most vertebrate populations it is impossible for an investigator to appreciate this perspective because studies are relatively short. By employing a population in individually recognizable animals with histories known since 1969, this project will make possible a lifetime perspective. A variety of difficult questions will be addressed. When do individuals with the greatest lifetime reproductive success begin to breed? Should an individual emigrate before beginning to breed? If so, when? Such questions are strongly influenced by social rank. How stable are the ranks of individuals over their lifetimes? Does the status of an individual early in life have a lifelong effect on its reproductive success? These and other questions can only be answered when a population of individually recognizable individuals is studied intensively for a long period. The proposed research will take advantage of this unique opportunity to study the causes and consequences of social dominance in long- term perspective.